DISSERTATION RESEARCH: Metabolic and behavioral integration in social insect colonies

Size is among the most important factors in determining the biology of an individual animal. Characteristics that correlate with body size include lifespan, metabolism, and growth. Despite the significance of these factors for fields ranging from field ecology to human medicine, scientists have not yet been able to explain the mechanistic link that generates these patterns throughout nature. Recent studies have demonstrated that size not only affects individual animals, but also entire societies such as social insect colonies. The central focus of this study is to test the hypothesis that behavioral organization influences the distribution of work within colonies and results in the allometric scaling of metabolic rate with colony size. Two sets of experiments will make it possible to test this hypothesis, first by measuring colonies as they naturally grow and second by artificially manipulating colony size. In both sets of experiments, metabolic rates, patterns of network connectivity, and and growth rates will be measured to develop an integrative perspective on how size affects whole colony energetics. This research will be conducted with the help of undergraduate students from minority backgrounds all of whom will have the opportunity to develop their own independent projects to develop and present at national conferences. A collaboration with the Estrella Mountain Regional Park in Maricopa County, AZ designed to educate and engage the general public with an interest in insect biodiversity will also be supported by this proposal.